Pulsed Dye Laser Experiments in the Physical Chemistry Laboratory

The goal of this proposal is to bring modern spectroscopic methods into our laboratory courses in physical chemistry. The specific aims of our proposal are: 1) to create five modern spectroscopic experiments based on a pulsed dye laser system; 2) to specify an instrument package that is within the budgetary reach of chemistry departments at most institutions; 3) to develop the experiments to the point that they can be adopted by instructors who lack prior expertise in laser spectroscopy; 4) to expose students in the introductory and advanced physical chemistry laboratories to modern techniques in physical chemistry; and 5) to communicate the results of our program both regionally and nationally through presentations at scientific meetings and publication.